Support for Students to Attend the 31st Annual DAMOP Meeting

This award provides support for student attendance at the annual meeting of the Division of Atomic, Molecular, and Optical Physics (DAMOP) to be held at the University of Connecticut, 14-17 June, 2000. This is the principal meeting covering principles of AMO physics held each year, and this award gives students the opportunity to participate in DAMOP sponsored events.